Adapting a College AI Literacy Curriculum for High School Classrooms Through a District-Wide Research-Practice Partnership

Artificial intelligence (AI) now shapes decisions in healthcare, hiring, news, and everyday life, making the ability to understand, use, and critically evaluate AI essential for all Americans, not only future computer scientists. Yet subjects like AI arrive in colleges first, and high schools have no reliable playbook for bringing them into classrooms. Access to AI literacy instruction thus remains uneven, especially outside computer science courses and in communities with fewer resources. This project will study how that translation can be done systematically, adapting as a case study a college-level AI literacy curriculum developed at Carnegie Mellon University for public high schools across Beaver County, Pennsylvania. A partnership among Carnegie Mellon University, the Beaver Valley Intermediate Unit, and schools spanning the county's fourteen districts, cyber and charter schools, and a career and technical education center will train and support 16 teachers across subjects including science, social studies, and career and technical education, directly reaching approximately 800 students, many in rural communities and vocationally oriented programs. The resulting practical guidance will help schools nationwide adapt fast-moving college-level subjects for their own classrooms, supporting an AI-ready workforce and informed citizenry and advancing national prosperity and welfare.

The project will investigate curriculum retargeting, the systematic adaptation of postsecondary curricula for secondary contexts, as a design problem in its own right. Ad hoc adaptation is costly: each effort starts from scratch, revision cycles multiply, and the first cohorts of students receive the rough draft. A well-defined process would let schools bring cutting-edge material into classrooms right the first time. Using design-based research within a district-level research-practice partnership, the project will examine what content, pedagogical, and structural mismatches arise when postsecondary STEM curricula enter high school classrooms; how teacher judgments about standards alignment, pacing, cognitive demand, and disciplinary integration shape adaptation decisions; and which district- and school-level factors support or constrain adaptation across socioeconomic contexts. Teachers and researchers will collaborate through whole-group sessions, summer co-design workshops, and two rounds of classroom pilots of adapted AI User modules. Data will include annotated curriculum materials and documented adaptation rationales; teacher reflections, classroom observations, and student work from pilots; platform interaction logs; and pre/post measures of student AI literacy. Analysis will combine mismatch identification, coding of adaptation decisions and the criteria teachers invoke, and cross-case synthesis across school contexts and adaptation cycles. The project will yield two complementary outcomes: a high-school-ready AI literacy curriculum, free to participating districts, and an empirically grounded retargeting framework comprising a process model, decision criteria, mismatch diagnostics, and reusable artifacts, ready for future emerging STEM fields.

This project was funded by the STEM K-12 program, which supports fundamental, applied, and translational research on STEM learning in both formal K-12 education and informal learning environments.